Improvement of Spectrophotometric Capabilities in Undergraduate Courses in Biology

9451541 Williams Enhanced instrumentation in spectrophotometry is used as a basis for emphasizing quantitative laboratory investigation. A number of laboratory classes including General Biology, Oceanography, Cellular, Molecular and Developmental Biology, Biochemistry and student Research classes incorporate use of diiode array spectrophotometers.